Industry/University Cooperative Research Activity: Interdisciplinary Materials Research (Materials Research)

Support is provided for the Materials Research Laboratory (MRL), which constitutes a materials research core at MIT, concentrating on major problem areas of scientific and technical interest which require multi-disciplinary, multi-investigator research. The research is organized into five thrust areas which comprise research on flow and fracture in high temperature alloys; defects in semiconductors; phase transitions; polymers; and a new industry-university cooperative initiative addressing innovations in the technology of high strength steels. This research addresses innovation in the technology of high-strength steels, with the aim of understanding and controlling metallurgical microstructure on an unprecedentedly fine scale in commercial alloys. Its theme is to advance and apply basic principles in physical metallurgy and related disciplines as a foundation for novel concepts in alloy design.